Dissertation Research: "Gender, Knowledge, and Authority: Social Relations in a Papua New Guinea Society"

This project involves the dissertation research of a cultural anthropologist in Papua New Guinea. The student will study how husbands and wives establish authority in communications in public, private and ritual settings. By accompanying couples into the rural forested areas and recording conversations and speech in various public and private situations the student will document and compare variations in cultural knowledge and analyze how they are used differently by men and women in social interaction. The research will use cognitive anthropological models of analysis to test the hypothesis that women's authority is greatest in private domains. This research is important because it can help us understand the role of gender in interpersonal relations. By providing a cross cultural comparison to studies done in Western societies, the study has the potential to advance our theoretical understanding of gender (a current book by Tanner on this subject, drawn from Western society studies, has been on the best seller lists for weeks).